The Fast Block to Polyspermy in Fucoid Algae.

This is a Research Opportunities for Women Career Advancement Award. The PI will use this award to learn new techniques in electrophysiology, particularly voltage-clamp studies. She will apply this new technology to study the problem of how polyspermy (second fertilization) is blocked in fucoid algae.